SBIR Phase II: Mass Produced, Flexible Insulation for Non-Combustible Buildings and Other High-Temperature Applications

The broader impact of this Small Business Innovation Research (SBIR) Phase II project is utilizing thermal energy management to simultaneously improve the affordability, comfort, and safety of buildings, with an initial focus on meeting urgent market demand for non-combustible building insulation. This project will focus on developing a lightweight, easy-to-install, non-combustible insulation product which is also eco-friendly and non-toxic. Structure fires represent 37% of all fires in the US. These fires caused $12.3 billion in property damage and 80% of civilian fire deaths. Wildfires in the Western US, where >$220 billion in residential construction is in “extreme” wildfire-prone areas, add to the urgency of this situation. Mineral wool is the only non-combustible insulation product available today but requires personal protective equipment for installation and was recently classified as carcinogenic. Fully non-combustible building insulation is a high growth market, and the broader market for all types of non-flammable insulation represents a significant opportunity. This Phase II project seeks to cost-effectively increase the supply of energy-efficient, non-combustible buildings for both new and retrofit construction, while also addressing high-temperature industrial markets which have the most intensive energy use.

This Small Business Innovation Research (SBIR) Phase II project seeks to scale up a novel nanocomposite insulation product using a proprietary foaming process for inorganic aerogel-based insulation that minimizes shrinkage (thus maximizing porosity for insulation performance and minimizing material and processing cost). This approach leverages readily available materials such as clay and silica, as well as potentially renewable cellulose biomass, to produce an environmentally friendly, high performance insulation product for non-combustible buildings which is easy to install, lightweight, and non-toxic. Successfully scaling this approach on existing manufacturing equipment may solve a significant materials research challenge, creating organic-inorganic nanocomposites for thermal insulation with a competitive cost / performance ratio versus incumbent products such as fiberglass, mineral wool, and plastic foams. The Phase II project may result in the first industrially-engineered composite material for thermal insulation which is fully non-combustible. The integration of flexible polymers and radiation blocking additives would also enable use for high-temperature industrial pipe insulation, a critical energy-saving application where most existing products have significant limitations due to radiation loss.